DISSERTATION RESEARCH: Systematics and Biogeography of the Genus Hysterangium (Basidiomycota, Phallales)

A grant has been awarded to Dr. Joseph Spatafora and Mr. Kentaro
Hosaka at Oregon State University to conduct the study "Systematics
and biogeography of the genus Hysterangium". Hysterangium is a
genus of mushroom-forming fungi that produces fruiting bodies below
ground. Unlike many of the above ground mushrooms, which can disperse
their spores by wind, Hysterangium's spores are only dispersed when
consumed by animals and deposited with their feces. This fact implies
that long distance (e.g., intercontinental) dispersal of Hysterangium
is improbable. The distribution of Hysterangium, however, is
worldwide. This can be explained by the hypothesis that Hysterangium
is a rather ancient organism and its present distribution was caused
by the breakup of the supercontinent Pangaea. Importantly,
Hysterangium forms mycorrhizae (beneficial relationships with the
roots) with many different tree species. Because these relationships
are specific, Hysterangium and host trees may have cospeciated. The
overall goal of this study is to develop robust hypotheses for
biogeography and cospeciation of Hysterangium by collecting and
analyzing DNA sequences. To achieve this goal, field expeditions to
previously underrepresented areas, Papua New Guinea, New Caledonia,
and New Zealand, will be conducted with a special emphasis on the
Nothofagus (southern beech) forests.

Hysterangium is an important component of forest ecosystems. It
produces abundant fruiting bodies, and many animals are heavily
dependent on such below ground mushrooms in their diet. Also,
mycorrhizal relationships of Hysterangium and host trees are
mutualistic. Surveying the Hysterangium flora of Nothofagus forests
provides a more clear understanding of these ecosystems, which in
turn facilitates more proper forest management. Despite the fact that
fungi are one of the most diverse groups of organisms on earth,
biogeography of fungi is poorly understood. This study will provide
more accurate understanding of biogeographic and cospeciation
patterns of mycorrhizal fungi with Hysterangium as a model organism.